Eighth International Symposium on Nondestructive Characterization of Materials; Boulder, CO; June 15-20, 1997

9703476 Green The objective of this symposium is to provide a specific unique focus on the science and technology of nondestructive evaluation applied to materials characterization. Properties of interest include microstructure, residual stress, dislocation density, porosity, and cure state. This symposium gathers together the technologists of nondestructive methods with mechanical engineers and materials scientists both to explore the applications of nondestructive characterization and the solutions to the problems encountered. Papers include research and applications for aging infrastructure, resonant ultrasound spectroscopy, on-line measurements for process control, precision and accuracy of nondestructive characterization measurements, advances in computed assisted tomography, non-contact ultrasonics, and microwave advances and applications. Research and applications in the nondestructive testing and evaluation of material characteristics such as yield strength, ductility, elastic modulus, grain size, microstructure, texture, fiber placement, and residual stress are discussed. Of considerable interest are state-of-the-art developments where the complex nature of materials has been recognized. Furthermore, discussions on the applications and possibilities for multi-technique measurements of interdependent parameters and the evaluation of the data through sophisticated computer analysis are encouraged. The proceedings of this symposium will be published as a bound volume entitled ONondestructive Characterization of Materials VIII.O %%% Advances in nondestructive evaluation are important to the application of new and advanced materials, manufacturing, and the monitoring of infrastructure performance and useful life. ***